The Impact of Extratropical Forcings on Observed and Simulated Tropical Surface Temperature Patterns

Contrary to expectations, a large patch of the eastern Pacific Ocean has cooled over the last several decades, and there is evidence that the cooling matters for weather patterns worldwide including rainfall over the Southwest U.S. A challenge in understanding the cooling trend is that computer models generally fail to simulate it, instead showing warming trends across the Pacific. Understanding what causes the observed Pacific cooling, why models struggle to reproduce it, and how it might evolve in coming decades is critical for anticipating and planning for future weather conditions across the US. This project investigates a promising yet underexplored mechanism for the cooling: that changes far outside the tropics, including the natural variability of the Ocean around Antarctica, industrial aerosol emissions from the middle latitudes of the Northern Hemisphere, and the Antarctic ozone hole, are influencing tropical Pacific sea surface temperatures (SSTs) in ways that current models fail to capture. The work performed here seeks to improve near-term projections from Earth system models (ESMs) and providing more reliable information for anticipating changes in weather patterns.

The central hypothesis of the project is that the response of the eastern tropical Pacific to forcing from the middle and high latitudes of the Northern and Southern Hemispheres is strongly modulated by the tropical mean basic state. The inability of ESMs to simulate the response would then be due in large part to the cold bias of the eastern equatorial Pacific and the accompanying double intertropical convergence zone bias, which are among the most common biases found in ESMs. The hypothesis is tested through comparisons of observations and existing archives of ESM simulations, as well as new simulations using specialized configurations of the Community Earth System Model (CESM) which allow control over both mean state biases and the relevant forcings.